Collaborative Research: CRI: CRD: An Open Source Extensible Virtual Machine Monitor

Proposal Title: Collaborative Research: CRI: CRD: An Open Source Extensible
Virtual Machine Monitor
Institution: Northwestern University
Abstract Date: 04/23/2007
Proposal #: CNS 07-09168 07-07365
PI(s): Dinda, Peter A. Maccabe, Arthur B.
Bustamante, Fabian E.; Joseph, Russel E.
Institution: Northwestern University University of New Mexico
Evanston, IL 60208-1110 Albuquerque, NM 87131
Title: Colla Rsch:CRD: Community Resource Development: An Open Source
Project Proposed:
This collaborative project, developing an extensible open source Virtual Machine
Monitor (VMM) for modern architectures (those that support the Intel VT or AMD
Pacifica virtualization extensions), aims to maintain a small codebase size while
supporting extensive extensibility. The approach combines compile-time composition of
major modules to configure the VMM with run-time extensibility akin to a microkernel.
The project is expected to produce a fundamental tool for research in systems and
architecture, an open source extensible virtual machine monitor. Expecting to meet the
needs within the high-end computing community identified by the FAST-OS effort, the
VMM will be used as a shared community resource.
Broader Impacts: The infrastructure will be useful in research and education and
production context. It will be free and available to all in source code form.
Underrepresented groups are impacted through Northwestern's AGEP program and
through U NM, a minority serving university.